Experimental Endosymbiosis in Plants

This project is attempting to engineering a bacterium, using no more than currently available technology, intro an intracellular, seed-transmissible endosymbiont that functions as a plant 'organelle'. The approach is based on a screen designed to select directly for endosymbiosis. An SGER would allow us to test the feasibility of the method. We will construct Bacillus subtilis Kan (kanamycin-resistant) Hyg (hygromycin-resistant) Gus (B- glucuronidase); derive L-forms from it; introduce these into tobacco protoplasts; select for callus simultaneously resistant to Kan on the presence of endosymbiotic 'organelles'. If this proves feasible, it would permit a full-scale research project to develop conditions for optimization of selection and regeneration of endosymbiotic callus into whole plants. Several arguments suggest the approach is feasible in principle. These include not only the straightforward selection and simple technology, but also the large number of endosymbioses found in nature, and particularly the reports of laboratory-induced endosymbiosis in Amoeba and plant cells. %%% Organelle engineering would allow plants to be equipped with agronomically valuable metabolic and physiological capabilities that are too complex to be introduced by gene transfer, would also provide a practical system for system endosymbiosis in the laboratory.